OCE-PRF Track 1 (Broadening Participation): Determinants of parasite populations in an estuarine system

Parasites are now recognized as integral members of ecological communities, yet thorough investigation of the relative influences of the complex factors controlling their populations has not been undertaken. In this two year postdoctoral research fellowship, the fellow will pursue empirical and theoretical investigations into the relative influences of bottom-up and top-down regulation and recruitment limitation on parasite populations in an estuarine system. The research will take place at the University of California, Santa Barbara (UCSB) under the direction of the lead sponsoring scientist Kevin Lafferty. The fellow will also work with a second sponsoring scientist, Jan Medlock at Oregon State University. The fellow will broaden participation of under-represented groups in ocean sciences by designing a teachable unit on host-parasite interactions and presenting this activity to groups of K-12 students.

In this research effort, the fellow will investigate the relative influences of host density and eutrophication (bottom-up influences), concomitant predation, predation on free-swimming parasite stages, and intraguild predation (top-down influences), and recruitment limitation in a guild of trematode parasites with complex life cycles. Results of experimental and survey work will be supplemented with data from ongoing and completed projects in the UCSB Ecological Parasitology Laboratory to parameterize mathematical models describing the system. Under the direction of the second sponsoring scientist, modified 'macroparasite' equations will be used to model the dynamics of parasite populations, and test the relative influences of bottom-up effects, top-down influences, and recruitment limitation. Research findings will contribute to the growing body of knowledge on the relative influence of bottom-up vs. top-down effects on population dynamics and the role of recruitment in limiting populations.